Career: Photonic Crystal Waveguides and Device Integration

This is a proposal to design, build, and evaluate photonic crystal nanophotonic
waveguide components and optical systems. The broad goals of this program are to
develop a practical nanophotonic technology, and to incorporate knowledge of the
advancements in photonics technology into the classroom. There has been a great deal of
research into photonic bandgap structures in the last few years. All of this work,
however, has been done either as basic research on the optical properties of different
dielectric lattices or on single photonic components. My research at USC contains
several programs in which the goals are to develop individual nanophotonic devices or to
engineer a particular feature of one of these devices. This proposal is intended to build
on work ongoing in those programs and to integrate the results into an integrated optical
communication technology. Waveguides, of course, are important in their own right, but
they are also one of the key elements necessary to combine devices to form functional
optical circuits. In doing this, care must be taken to minimize coupling and insertion
losses as well. There are several key questions to be investigated in this program. What
is the origin of photonic crystal waveguide loss? How do we design efficient guiding in
thin patterned films? What are the trade-offs between one-dimensional and two-dimensional
periodic guiding structures? How do we go from single devices to an integrated optics technology using photonic crystals? What modeling algorithms can handle these structures efficiently, and are there system level modeling algorithms possible?